Toxic and Essential Trace Elements in Brain Development: June 24-28, 2000; West Palm Beach, FL

0084515
Golub

This proposal seeks support for a symposium on Toxic and Essential Trace Elements in Brain Development to be held at the Neurobehaviora Teratology Society meeting. The symposium focuses on research concerning damage to brain development caused by both deficiencies and excesses of trace elements. It is unique in that it brings together scientists who study trace elements as toxicants and those who study trace elements as essential elements for an exchange of information and research perspectives concerning brain development.

The symposium includes a diversity of participants. One of the 3 organizers is a woman as are two of the four symposium participants. In addition, there is one foreign contributor (Canada). The symposium also presents opportunity for scientists early in their careers, in that two of the participants are young scientists from research groups with active programs in this area.